Structural, Magnetic and Electronic Properties of Interstitially Modified Magnetic Systems

w:\awards\awards97\budnick05136.doc 9705136 Budnick This is a renewal project to study the effect of gas-phase- element interstitial modification of Sm2Fe17 and related structures. Such modification is showing promise for the development of in a new class of magnetic materials with properties potentially suitable for permanent magnet applications. In the proposed research, general questions concerning both interstitial R2Fe17(N,C,H)x (R = rare-earth element) and substitutional Sm2Fe17-yTy (T = Ga, Al, and Si), as well as the related R(Fe,T)12, R3(Fe,T)29, and R2Fe14B rare-earth systems, will be addressed. The local atomic, electronic, and magnetic structures, and the related macroscopic magnetic properties will be explored by nuclear magnetic resonance, Mssbauer effect, x-ray absorption fine structure, neutron diffraction, and muon spin rotation. The goals are to understand the specific local aspects leading to changes in magnetic anisotropy and individual sublattice magnetization as well as to determine the specific site moment dependence on local environment and lattice expansion. %%% This is a renewal project to study the effect of gas-phase- element interstitial modification of Sm2Fe17 and related structures Permanent magnetic magnets are vital for both national security as well as commercial industries. For example, an automobile contains more than 100 magnetic components. The total market for permanent magnets is currently more than $10 billion per year, and growing rapidly. This application requires materials with high performance, high working temperature, and low cost. Since the 1980s, the search for permanent magnetic materials (to replace cobalt) has concentrated on iron-based compounds because iron is abundant, inexpensive, and has relatively high magneti c moment. Recently, it has been discovered that when gaseous elements such as nitrogen are diffused into selected iron compounds, the magnetic properties are greatly enhanced. Our research program utilizes microscopic experimental techniques such as magnetic resonance to study the role that such inserted elements play in improving not only the magnetic properties, but the general physical properties of materials. ***